Providing Students with a Complete Toolbox for Chemical Analysis

Chemistry (12) Gas chromatography and mass spectrometry (GC-MS) are used as essential components of a complete toolbox for chemical analysis. With GC-MS, we adapt several new laboratory experiments using a problem-based format in organic, analytical and criminology laboratory courses. We also employ problem-based learning (PBL) in the labs to motivate students to use high-level reasoning. While working in teams, students devise solutions to problems using PBL. An Assessment Coordinator provides feedback on strengths and weaknesses and how the pedagogical process affects student learning.